Franco-American Workshop on New Research Directions in Integrated Networks

This proposal requests partial support for an International Workshop on New Research Directions in Integrated Networks. It is an outgrowth of an initiative of the French Ministry of Research in cooperation with NSF, and funding is being requested from both sources to provide logistical support as well as travel expenses for some of the invited speakers. Two other sponsoring organizations will be involved: the Center for Telecommunications Research at Columbia University (CTR) and the French National Institute for Research in Information and Automation (INRIA). The objective of the workshop is to bring together the leading researchers in the field of Integrated Telecommunication Networks for the purpose of exchanging information, stimulating ideas for future research, and identifying possible joint projects.